Stochastic Response of Metal Plate Connected Wood Trusses

The primary goal of the research is to develop a stochastic finite element computer program suitable for metal plate connected wood trusses. A secondary goal is to develop a procedure for determining a generalized reliability index where distribution, shape, scale, and location are incorporated into the transformation of the structural limit state equation into standard normal space. The first objective will be to develop the stochastic finite element computer program. The next objective is to perform sensitivity analyses using the program. The final objective will be to examine the reliability of the truss members using the program output.